NSF Young Investigator Award

Theory of nonlinear dynamics will be applied to understand pattern formation in fluids and biophysics. Topical areas under study include cellular convection, three-dimensional coarsening, DNA sequence analysis, physics of neural organization and properties of neural networks.